Fourth International Symposium on Double-Stranded RNA Viruses, December 12-16, 1992, Scottsdale, Arizona

An International Symposium on Double-Stranded RNA Viruses will be held in Scottsdale, Arizona from December 12 through December 16, 1992. The puropose of this meeting is to bring together leading investigators and their associates from around the world who are engaged in research on this diverse group of viruses. %%% This meeting offers a unique opportunity for the interaction of scientists taking different approaches and using different technologies. It also provides a setting for the interaction of established and starting investigators.